Measurements of Actinides & Long-Lived Radionuclides, Third International Conference, January 29-February 2nd, 1990, Bombay, India, Group Travel Award in Indian Currency

Description: This project supports participation by fourteen U. S. scientists in the Third International Conference on Low Level Measurements of Actinides and Long-Lived Radionuclides in Biological and Environmental Samples, planned for January 29 to February 2nd, 1990 in Bambay, India. The Indian organizer is Dr. Z.R. Turel of the Institute of Science, in Bombay. The conference will discuss the follwoing subjects as related to the conference title: Method of develolpment for measuring ultra low or low level actinides and long-lived radionuclides (RN), determination of the chemical speciations of the RN, macro and microdistrubution of RN in humans, environmental behavior of actinides and long lived RN, and quality control of their measurements. Round table discussions will follow on these topics. The full text of papers will be reviewed and submitted for publications in Journals dealing with this scientific area. Scope: This is the third in a series of meetings that started in June of 1986 in Lund, Sweden. The second was held in Akita City, Japan in May 1988. These meetings deal with measuring low level RN to predict their behavior in the environment, intake and body distribution in humans, and with estimating the doses to aquatic and human populations. Each of the first two meetings was attended by scientists from over 15 countries with some 40 invited papers which were published in the International Journal of Radioanalytical and Nuclear Chemistry. The third meeting, in Bombay, is planned to bring together investigators from many countries with interest in measurements of RN in a wide variety of environmental and biological samples including air, water, soil, and hard and soft tissue.